Graphics Workstations for Three-Dimensional Modelling in Chemical Engineering

A grant is awarded for the pruchase of a VAX 520 graphics workstation. This equipment will help in the development of computer simulation studies in the following research areas: (1) studies of the microgeometry of mutiphase materials; (2) attainment of a fundamental understanding of crystal growth from the melt; (3) combustion in refractory tubes, including prediction of ignition and the production of pollutants; (4) models of the behavior of cell populations near varying concentration gradients of chemcial stimuli called chemotaxis); and (5) synthesis and optimization of chemcial processes including reactors, separation equipment, etc. The equipment will provide three-dimensional pictures that will aid faculty and students in visualizing and interpreting the results of their models.